I/UCRC Collaboration: Homeland Security Interfaces for Automated Surveillance and Robotic Response

The Industry/University Cooperative Research Center (I/UCRC) for Safety, Security and Rescue Research Center (SSR-RC) at the University of Denver will collaborate with the University of Minnesota on two distinct projects that involve human augmentation by computer; the first is a novel human/computer interface for hazardous environments called the "wearable joystick" and the second is a prototype airport exit lane monitoring system for security personnel.

Efforts by the academic community to expose advanced technology to emergency responders are highly valuable. The connection with the I/UCRC will ensure that both of these technologies will be exposed to users and first responders at the field trials hosted by the Center.